2019 Secure and Trustworthy Cyberspace PI Meeting

This award supports development of the program for a two-and-a-half-day workshop to be held on Oct 27-29, 2019 in Alexandria, Virginia. This meeting brings together principal investigators from across the Secure and Trustworthy Cyberspace (SaTC) program. The investigators identify topics and establish a workshop agenda, including speakers and panelists. Specific objectives of the PI meeting include:

- to stimulate coordination and collaboration amongst SaTC researchers working on the projects in the portfolio;
- to foster new collaborations between SaTC researchers and researchers in other disciplines;
- to share experiences and learn from others' experiences in transitioning research into practice;
- to support undergraduate research in SaTC researchers; and
- to develop ideas and share methods for improving education, recruitment, and career development in cybersecurity.

Building a strong community among SaTC researchers helps identify new research topics, avoid duplication of existing research, and improve educational opportunities for graduate students.